Mathematical Sciences: Some Natural Problems in Complex Geometry

9321262 Yau,S. S-T The research entails several problems in complex-analytic geometry. One problem relates to the topology and combinatorial aspects of certain linear configurations in complex projective spaces. This research has applications to algebraic geometry and number theory. Another topic involves studying the invariants of the embedding problem for CR-manifolds. ***